Impact of Leadership Relationships and University Context on the Performance of National Science Foundation Industry/University Cooperative Research Centers

This study will advance current knowledge of the relationship between Industry/University Cooperative Research Center (I/UCRC) directors and university administrators by investigating mutual leadership processes, a largely ignored area of inquiry in I/UCRC research. The research will also contribute to the research literature on leadership because of its focus on research center directors and university administrators, a subject population often neglected by leadership researchers.